Two Channel (EGG and Speech) Analysis-Synthesis for Voice Recognition

This project studies various aspects of voice recognition such as male/female voice discrimination and dialect recognition. This will be accomplished by simultaneously measuring the electroglottograph (EGG) and acoustic signals. Features of the data which will be extracted and will be validated by synthesizing speech using the parameters. The feature set will be used to determine the subset which best discriminates male/female voices. The results of the project will contribute to speech synthesis, speech/speaker recognition, and speech aids for the disabled.